Mathematical Sciences: Algorithms and Numerical Analysis for Partial Differential and Integral Equations

9311406 Bramble The investigator and his colleague study new techniques and methods of analysis of behavior in existing approximation methods, and introduce and analyze new algorithms for the numerical approximation of various problems. Specific areas to be considered include: i) Preconditioned iterative methods for fast solution of resulting algebraic equations. ii) Finite element methods in domains with curved boundaries and interfaces. iii) Local behavior of finite element methods in differential and integral equation problems with singularities. iv) Superconvergence phenomena in differential and integral equations. Numerical experimentation and examples will play important roles in the discovery and elucidation of various numerical methods. Of course, practical application is a motivating factor for the problems studied here. One of the principal aims of the studies proposed is to develop a deeper understanding of many existing methods, improve them or develop new ways of treating old and new problems. This kind of understanding is central to the design of accurate and efficient algorithms for the use in present and future computer environments. The investigators are researching various questions concerning the practical solution of problems of interest in engineering and science. For example, such problems give rise to extremely large sets of equations and the investigators study mathematical questions related to computing their solutions. One aim is to construct methods that are faster and more accurate than existing ones. A second aim is to invent and study techniques for the solution of problems heretofore beyond the scope of even the most powerful computers. Some areas of application in which the above mentioned studies are very important are Structural Mechanics, Fluid Dynamics, Groundwater flow and Electromagnetic theory.